Plastic Deformation of Deep Mantle Minerals

The goal of this research project is to study the role of phase transformations in the rheological properties of the deep mantle. Phase transformations may change the rheological properties through various mechanisms, including the change in crystal structure and the change in grain-size. The present project includes the following elements. (i) High-temperature deformation experiments on single- and poly-crystals of analogue materials. Analogue materials to be studied include oxides garnets and titanate perovskites. Both grain-size insensitive (dislocation) and grain-size sensitive (diffusion) creep will be studied to identify the deformation mechanisms in each regime and to determine the boundaries between the two deformation mechanisms. (ii) Transmission electron microscopy of dislocation micro- structures in high pressure polymorphs of silicates and experimentally deformed analogue materials to compare the dislocation slip systems and dislocation core structures, and to infer the relative strength of coexisting minerals.